Mathematical Sciences: Dynamical Systems and Ergodic Theory

9404420 Wojtkowski The plan of research includes a number of topics in Hamiltonian dynamical systems relating to billiard dynamics and their geometries. Ergodicity of flows within these systems will be investigated. The research has potential applications to areas relating to chaotic phenomena arising in dynamical systems and mathematical physics.